Presidential Young Investigator Award: CAD for System Integration of Custom Components

Research consists of two major parts. The first seeks to develop more tools that handle chip-interface design, based on the timing diagram methodology, covering all steps through testing and documentation. The second part seeks to develop tools that give system designers a spreadsheet-like way of evaluating architectural and system-timing decisions at the level of data- path diagrams.